Distributions for Optical Design

Hicks
DMS-0908299

Until approximately ten years ago, it was only possible to
machine optical quality mirrors and lenses that were surfaces of
revolution. Due to advances in optical machining technology it
is now possible to essentially machine a surface of any shape.
This increase in design possibilities calls for new design
techniques. Traditionally, partial differential equations and
differential geometry did not play a role in optical design
because of the restrictions of what surfaces could actually be
made. Now, using these methods, and in particular the viewpoint
of exterior differential systems, we have a framework to attack
these complex problems. Additionally, new models for optical
systems are developed based on functional differential equations.

In recent years a plethora of difficult new optical design
problems have appeared. Energy conservation has become a problem
of global concern, and in particular the problem of efficient
lighting. Significant advances are currently taking place in
illumination technology, due to the rise of the light emitting
diode. Yet the design problem for illumination systems has
proven to be notoriously difficult, and is currently more of an
art than a science. The investigator and his colleague develop
new mathematical methods to deal with these challenges in optical
design. The project provides a framework for illumination
design. Another application is to automotive safety. The
principal investigator has already designed a driver-side mirror
without a blind spot, that has no distortion. The problem of
designing a similar mirror for the passenger side of a car is
more complex, and is pursued in this project. Finally, the
investigators disseminate this work through interactive exhibits
based on the project that are hosted by The Franklin Institute, a
major US science museum located in Philadelphia, Pennsylvania,
which is visited every year by over 750,000 people.